Living on Earth...

LIVING ON EARTH is a new weekly National Public Radio newsmagazine about the people and politics of environmental change. It goes beyond the ecological segments on NPR's ALL THINGS CONSIDERED and MORNING EDITION to meet the growing demand for consistent, high quality, balanced and in-depth coverage of the environment, and scientific discoveries and advancements relevant to the rapidly changing ecology of our planet. Audience research consistently shows that information about the environment is a priority to a broad majority of public radio listeners, and these listeners are twice as likely as all adults to take personal and political action in relation to environmental concerns. With the premiere of Living On Earth in April 1991, public radio in the U.S. began serving its national audience with its first journalistically strong environmental show, Living On Earth. Each week's edition of Living On Earth begins with a one minute billboard, followed by a five minute newscast summarizing national and world ecological and scientific developments. The newscast includes modular breaks so that stations can insert two minutes of local environmental news. The balance of each program is devoted to a theme, with produced reports followed by a five minute newscast summarizing national and world ecological and scientific developments. The newscast includes modular breaks so that stations can insert two minutes of local environmental news. The balance of each program is devoted to a theme, with produced reports followed by interviews, commentaries, and occasional humor. From time to time the show is devoted to a full-length documentary or debate special. Standards of thoroughness, fairness, and excellence result in shows that stimulate as well as inform. Distributed by National Public Radio, the program is available to more than 400 NPR stations in the U.S. Already 160 of those stations have signed up to air the program. Many environmental issues -- sustainable energy, population, biological degradation, sustainable economic development and pollution, for example -- are of global concern and cut across political, racial and cultural boundaries. Material and information for Living On Earth is obtained from diverse producers and will be exchanged with public radio services around the world. //